Beyond Earth : Weaving Science and Indigenous Culture

This planning grant is designed to engage urban and rural families in science learning while piloting curriculum development and implementation that incorporates both Native and Western epistemologies. Physical, earth, and space science content is juxtaposed with indigenous culture, stories, language and epistemology in after-school programs and teacher training. Project partners include the Dakota Science Center, Fort Berthold Community College, and Sitting Bull College. The Native American tribes represented in this initiative involve partnerships between the Dakota, Lakota, Nakota, Hidatsa, Mandan, and Arikara.

The primary project deliverables include a culturally responsive Beyond Earth Moon Module, teacher training workshops, and a project website. The curriculum module introduces students to the moon's appearance, phases, and positions in the sky using the Night Sky Planetarium Experience Station during programs at the Boys and Girls Club (Ft. Berthold Community College), Night Lights Afterschool program (Sitting Bull Community College), and Valley Middle School (UND and Dakota Science Center). Students also explore core concepts underlying the moon's phases and eclipses using the interactive Nature Experience Station before engaging in the culminating Mission Challenge activity in which they apply their knowledge to problem solving situations and projects. Fifteen pre-service and in-service teachers participate in professional development workshops, while approximately 300 urban and rural Native youth and family members participate in community programs.

A mixed-methods evaluation examines the impact of Western and Native science on the learning of youth and families and their understanding of core concepts of science in a culturally responsive environment. The formative evaluation addresses collaboration, development, and implementation of the project using surveys and interviews to document participant progress and obtain input. The summative evaluation examines learning outcomes and partnerships through interviews and observations. Presentations at national conferences, journal publications, and outreach to teachers in the North Dakota Public School System are elements of the project's comprehensive dissemination plan. The project findings may reveal impacts on participants' interest and understanding of connections between Native and Western science, while also assessing the potential for model replication in similar locales around the country.